SCI: Extending High Bandwidth Academic and Research Networking to Africa

This SGER proposes to develop a plan to extend international high bandwidth Internet connectivity to a group of up to four countries in sub-saharan Africa. The lack of such connectivity has been a major impediment to the development of the Internet in Africa. To accomplish this, it will investigate a unique opportunity to obtain a donation of bandwidth on fiber optic submarine cables that are currently being installed. Within each selected country, a "Technology Exchange Point (TEP)" that will serve as both an aggregation point for domestic network links and as a national network technology support center, will be identified. Linkages will be developed with scientific and health/medical communities that have research projects involving US/African collaborations. Partnerships will also be explored with US agencies that fund research in the target countries.